INTERNet Connection to U.S. INTERNET Inc

9503544 Binder Maryville College is seeking support in connecting its campus to INTERNet by installing a node on campus. The support would be in the form of computer hardware, communications software, and communication services. Maryville College currently has dial-in access to INTERNet through the University of Tennessee in Knoxville for most of its faculty and staff, but this service is quite limited, and it is not available to students. By connecting to INTERNet via a node, Maryville College would be able to greatly improve and expand its current computer services to its constituents, especially its students. These connections will provide operations management and information services and it will give the college a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The benefits of the NSFNET connection include e-mail between local and remote researchers and educators, file transfer capability and the ability to use remote computer resources. Also the college will have the ability to investigate innovation in educational resources and incorporate them into their curricula.